Charter Party Agreement for R/V Oceanus

9630592 PITTENGER The NSF-owned Research Vessel OCEANUS has been operated under a charter party agreement by the Woods Hole Oceanographic Institution since it was put into service in 1975. This project extends the Institution's operation of the OCEANUS for five years under an updated, modified charter party agreement. ***